I-Corps: Translation potential of a platform to manage microgrids in real time

This I-Corps project is based on the development of an optimization and control system for commercial and industrial microgrids that use battery storage and power from natural sources. Many large electricity users such as university campuses, hospitals, factories, and data centers pay utility bills based on the highest power level drawn during a billing period. These peak charges can persist and inflate costs for many months under complex utility contracts, yet most electricity users lack tools to manage them effectively. As organizations add solar panels and batteries, they struggle to operate these assets profitably under real-world contracts, leaving substantial savings unrealized. This technology determines how to charge and discharge batteries and use solar power in real time to minimize costly demand charges over the long term. The commercial opportunity includes energy storage, building energy management, and grid services, where even modest improvements yield meaningful financial returns. This technology may lower electricity costs and enable smarter energy use to improve the economics, strengthen energy resilience, and reduce strain on the electric grid for a wide range of energy-using facilities nationwide.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a microgrid optimization technology that couples billing-period peak-demand with high-resolution operational control and contract awareness. Unlike existing approaches that rely on simplified tariffs, short planning horizons, or heuristic penalties, this technology explicitly models the multi-month rolling peak-demand ratchets, distinct supply and distribution demand charges, and interval-level constraints found in real commercial electricity contracts. The technology comprises two coupled parts: an optimization model that computes physically feasible supply-demand and distribution-demand bounds minimizing contract-defined charges across a billing cycle, and a deterministic control algorithm that enforces these bounds at fifteen-to-thirty-minute resolution by computing closed-form battery dispatch actions from predicted net demand and battery state. This separation enables scalable analysis over full billing periods and multi-year horizons while preserving operational realism, and the resulting demand bounds serve as compact, high-fidelity inputs to long-horizon investment planning. Validation using year-long university campus demand data, solar generation estimates, and a real utility contract demonstrates significant demand-charge reductions and positive returns on investment across a range of battery and solar configurations, confirming both technical feasibility and economic value for prospective users.